Bacterial Chemotaxis to Naphthalene Desorbing from a Nonaqueous-Phase Liquid

0121208
Aitken
The objective of the proposed research is to examine bacterial chemotaxis to organic contaminants. This research will examine if chemotaxis is a significant process with respect to overall biodegradation rates near nonaqueous-phase liquid sources. The importance of chemotaxis in the presence of multiple effectors on the biodegradation rate will be examined. Also, a model of chemotaxis flux will be further developed and validated. The results of this research could provide increased understanding of the relevant mechanisms that govern in situ biodegradation. This could help to quantify and predict biodegradation rates.